Mathematics Access for Promising Scholars

This program provides scholarships to talented, low-income students majoring in mathematics. Special consideration for scholarships is given to minority and underrepresented students who desire to receive an associate degree and transfer to a baccalaureate program. Students in the program receive individualized support via peer mentoring, academic advising, career exploration and advisement, and tutoring. The scholarships, renewable for three additional semesters after the initial award, provide for the cost of tuition, fees and books for a 12-hour full-time course load. The college has partnered with the Texas A&M University System on an articulation agreement that provides a collaborative support structure to facilitate seamless transition for the student allowing them to complete a four-year degree on the college campus.